U.S.-Netherlands Cooperative Research: State-Selective Detection of Products from State-Selected and Oriented Reactants (Chemistry)

This award will support a two-year cooperative research project in chemistry between Dr. David H. Parker, Department of Chemistry, University of California, Santa Cruz, and Dr. Steven Stolte, Catholic University Nijmegen, The Netherlands. The investigators will combine recent advances in laser methods for detection and characterization of molecules formed in crossed-molecular-beam reactions with techniques which prepare the reacting species in selected rotational and vibrational states. In addition, directional properties such as the dependence of the reactivity on the orientation of the reactants (the so-called steric effect), which provide intimate details on how a chemical reaction proceeds, will be emphasized. Dr. Parker has considerable experience in applying the technique of laser ionization to detect reaction products in flames, supersonic expansions, and other challenging environments. By carefully selecting the frequency of the laser light used in probing for reaction products, he can also determine the specific energy level or levels those product species are in. Professor Stolte, in Nijmegen, leads a research group that has developed elegant methods for producing beams of molecules in selected orientations and energy states, allowing them to react with various other species, and detecting the products as well as the alignment of product chemiluminescence when it occurs. By cooperating in a detailed study of a few carefully selected reactions, the two scientists expect to enhance current knowledge of molecular reaction dynamics, and in particular to gain a better understanding of how a chemical reaction takes place on the most basic level. Funds from this award will support necessary transportation and subsistence expenses for the U.S. principal investigator. The government of The Netherlands, through the Catholic University Nijmegen, is also providing support for the project.